Studies of Neutron-Irradiated Fluid Inclusions by Laser- Microprobe, Noble-Gas Mass Spectrometry

The principal investigator has used a laser microprobe, linked with a highly sensitive mass spectrometer, to do unique chemical analyses on fluid inclusions. He will expand the scope of his studies to include noble gases and halogens in studying fluid inclusions in mineralized porphyry copper deposits and in high- grade metamorphic rocks. He will also investigate nucleogenic noble gas isotopes in unirradiated splits of the same samples. This work will be especially important in the development of new analytical techniques which may eventually be applied to many other geologic studies.